The Study of Equine and Other Livestock Physiology through Instrumental Monitoring

This modest award provides funds to the Department of Animal Science at Southern Illinois University-Carbondale to purchase a modern diagnostic ultrasound machine with a video printer and computerized spectrophotometric equipment. An educational program aimed at in-depth training of students in the various techniques available for assessing reproductive fitness in livestock, including diagnostic ultrasonography and semen evaluation, could have a direct impact on the efficiency of the industry and upon the placement of these graduates. Implementation of such an educational program is already underway at Southern Illinois University at Carbondale. In order to maximize the laboratory experience of students, however, the department requires an upgrade in equipment from that which is currently available. The grantee is matching this award with non-Federal sources.